Texas Regional Enhancement Program for Underprepared Physics Teachers (PEP)

ABSTRACT ESI-9550040 This five year project will provide 45-days of physics content and leadership training each year for 24 Texas physics teachers. One cohort will begin in the first year and continue for three years while the second cohort will begin in year three and continue for the final two years. These 45-days include 2-week summer institutes, a series of academic year(AY) follow-up workshops on supplementary topics and a series of visits to their classrooms. Leader teachers can earn 3-semester hour of graduate credit each year. Those participating for the full three years will be enhanced in all the typical areas of introductory physics. Following each summer's workshops they will conduct second tier workshops for colleagues in grades K-12 in their local district and surrounding districts. These workshops will also provide their colleagues with a minimum of 100 hours of teacher enhancement. In addition to professors from Texas A&M University the strong network of Texas physics teachers built around the Texas Physics Teacher Resource Agents will have an instructional and networking role in the project.